NSF Young Investigator: Two-Dimensional Vertical Cavity Laser Arrays and Aluminum-Free Lasers

My research will include two thrusts (1) 2D vertical- cavity laser arrays with ultrahigh (terahertz)bandwidths for optical communications, interconnections among computers, and real-time optical signal processing, (2) Aluminum-free lasers to achieve high reliability for applications in optical- pumping and optoelectronic integration. Specific work includes the design, fabrication and theoretical analysis of novel devices and examination of systems implementations.